Upgrading Graphite Furnace and Flame Atomic Absorption Instrumentation for a Marine Geochemistry Laboratory

A newly developed atomic absorption instrument dramatically improves the technical capabilities of Zeeman graphite furnace atomic absorption. A DC permanent magnet system and other improvements in optics and electronics leads to a 5-10 fold improvement in detection limits for certain key elements. This improvement will enable the analysis of samples which were previously too small and also will allow for more efficient laboratory operation. For example, Cd/Ca analysis in foraminifera requires several hours of microscopic examination and separation before sufficient specimens are found, and in some important samples, there are insufficient individuals for analysis in the largest available sample. The instrument has the capability to do both flame and graphite furnace work, and so also will address a looming problem concerning the repairability of our 19-year old flame atomic absorption instrument.